A Latitudinal Survey of Freshwater Ascomycetes

Shearer
DEB-9971645

Filamentous fungi in the class Ascomycetes play an important role in freshwater habitats as decomposers of aquatic macrophytes and woody debris and deciduous leaves of riparian trees. The freshwater acomycetes have been studied intensively only in the past 25 years and only a few geographical areas have been sampled. In this study, ascomycete species will be collected, isolated, and identified from freshwater habitats along latitudinal and altitudinal gradients in North America from the tundra to New Mexico and from La Selva, Costa Rica. Specimens will be deposited in major herbaria. Cultures will be screened for production of asexual states and bioactive compounds and deposited in major culture collections. Data from this study will provide baseline knowledge of the species-level diversity of freshwater ascomycetes in different types of aquatic habitats necessary for analytical research in ecology, conservation, systematic, and population biology.